Research Initiation: Development of Testing and Simulation Methodologies for Infant Failure and Field-Yield Estimationfor MOS VLSI/ULSI Circuits

New switch-level approaches for fast and efficient simulation of MOS IC's are to be formulated in order to estimate "infant" (i.e., early) failures and to estimate field yield in large chips. The simulation scheme is also expected to identify the critical sub-section of circuits that cause early failures and should help in redesigning for greater robustness.